An Algebraic Approach to Superconformal Field Theories and Their Application to Superstring Theory

Research in theoretical physics will study the algebraic structure of string theories and other entities. String theories may provide an explanation of all the basic forces of nature, but they are mathematically subtle and complicated. Thus, the study of the mathematical structures underlying them is quite important.